Analysis of the Role of Cx43 in Mouse Development

Gap junctions are comprised of membrane channels that allow the diffusion of small molecules between cells. Studies of gap junctional communication in the early mouse embryo have shown that cells in the embryo exhibit preferred pathways of exchange that effectively subdivides the embryo into discrete domains or communication compartments. The spatial organization of these compartments correlate with ongoing differentiation and cell lineage segregation events. These observations together with the finding that the inhibition of gap junctional communication can lead to developmental perturbations suggest that gap junctions may play an important role in mouse embryogenesis. To evaluate this possibility, in this study the embryonic stem cell approach will be used to target the disruption of the endogenous gap junction gene encoding Cx43, as Cx 43 transcripts are observed to be differentially expressed within the context of these communication compartment domains. Once such targeted ES cells are obtained, they will be used to generate chimeras, from which embryos and mice that are heterozygous and homozygous for the Cx43 null allele will be obtained and analyzed. A detailed histological analysis will be carried out to examine if development is perturbed. The gap junctional communication properties of these embryos will be monitored by ionic and dye coupling studies. Of particular interest would be the finding of perturbations in heart development, and the development of the central nervous system, the segmented vertebral column, limb morphogenesis, etc., as in situ hybridization studies have shown that Cx43 is expressed in a striking spatially restricted pattern in conjunction with development in these regions of the embryo. The results of these studies should provide valuable insights into the possible role of Cx43 in mouse development.